Improving Undergraduate Instruction in Organic Chemistry Through Proton NMR Spectrometry

A recently acquired NMR Spectrometer is being used extensively in the area of organic chemistry but also throughout the chemistry curriculum at Holy Family College in the preparation of students for industry, graduate school, teaching, pre-medicine, pre-pharmacy, medical technology and the allied health professions.